Workshops in Geometric Topology

DMS-0104325
Craig Guilbault

This award provides partial support for active research
mathematicians with limited means of support to attend
and participate in the Eighteenth, Nineteenth, and Twentieth
Annual Workshops in Geometric Topology to be held in the
summers of 2001, 2002, and 2003. The workshops will be hosted
by Oregon State University in the 2001, Calvin College in 2002,
and Brigham Young University in 2003. The 2001 Workship will
feature Princial Speaker Abigail Thompson of the University of California, Davis who will deliver three one hour lectures.
Similarly, the 2002 and 2003 Workshops will also be centered around prominent principal speakers. Further information is available at: http://ucs.orst.edu/~garityd/TOPOLOGY/workshop.htm